Laser Atomic/Molecular Spectroscopy Laboratory for Under- graduate Instruction

The Physics Department will develop a laser atomic molecular spectroscopy laboratory for undergraduate instruction. The facility will include a pulsed tuneable dye laser, a boxcar averaging system for time resolved detection, a tuneable CW laser, a double spectrometer for recording high dispersion spectra, and provisions for upgrading an existing apparatus as a versatile atomic beams device. The laboratory will make extensive use of computer interfacing and control. Activities in the lab will cover a wide range from simple demonstrations and observations to routine experiments associated with our advanced courses to student research projects and theses. Typical experiments include Raman spectroscopy, investigations of the optogalvanic effect, atomic and molecular life time measurements, non- linear spectroscopy, Doppler free atomic beam spectroscopy, two-step excitation of Rydberg atoms, and observations of coherent transient phenomena.